Engineering Research Equipment Grant: Advanced Gas Chromatography System with Multidimensional Capabilities

The complex analytical problems of separating the intermediates and products from the oxidation of fuel-like hydrocarbons require sophisticated chromatographic techniques. Two complementary methodologies to provide these capabilities are capillary columns and computer controlled, programmed valve switching, also called multi-dimensional or "heart cutting" analysis. While capillary columns by themselves provide increased resolution over packed columns, they have not been sufficient to separate very complicated mixtures of alkanes, olefins, and oxygenates. Therefore to achieve separation, it is often necessary to use multiple columns which are switched into and out of the carrier flow during an analysis. Further separation is often achieved by holding selected fractions of the gas sample in a column and backflushing this partial sample into a second analytical column. This technique is called "multi-dimensional" gas chromatography. The system specified will allow implementation of sophisticated separation techniques, which are required for several ongoing research projects of the Combustion and Fuels Research Group. An enhanced gas chromatography identification/analysis system is requested to replace and upgrade existing capabilities for conducting research in the combustion processes and engine and fuels technology areas. The proposed system allows multi- dimensional analysis capabilities, which are essential in the analysis of more fuel-like hydrocarbons which have carbon numbers greater than or equal to five.